Modelling and Assimilation of Seasonal Changes in the Tropical Atlantic Ocean

In this project, the P.I. will use model and data assimilation techniques to study seasonal and interannual variability in freshwater transport, the relationship between near-surface temperature and salinity, and offshore transport of mass and heat in the western tropical Atlantic Ocean.